Spin-Resolved Studies of Electron Transfer at Electrode Surfaces

The focus of this research project is to study the role of electron spin in electron transfer at electrode surfaces. Professor Klebanoff, who is doing the research under a Small Grant for Exploratory Research (SGER) sponsored by the Analytical and Surface Chemistry Program, is working to determine if electron spin effects can be measured. A uniformly magnetized nickel single-crystal electrode serves as a spin polarized source and acceptor of electrons. The reduction of a paramagnetic transition metal complex ion in acidic solution proceeds with an oscillatory magnetization of the electrode. Using lock-in amplifier technology, the reduction current is examined for an alternating current component at the frequency of the magnetization. An understanding of the mechanisms by which electrons are transferred between species in solution and electrically conducting solids is of both fundamental and technological importance. In this project, Professor Klebanoff is investigating the role of electron spin as a possible new probe for the study of electrolytic processes. Such a new probe might impact on the practical development of batteries and fuel cells as energy sources.